Time-Dependent Plastic Flow in Metals and Alloys (Materials Research)

An investigation of time-dependent deformation employing both computer modelling and experiments will be conducted on pure metals and the intermetallic compound, nickel aluminide (Ni 3AL). The research will include studies of the cell structures developed during deformation in terms of the elastic properties of individual dislocations and the development of a constitutive model for plastic flow, including flow kinetics, strain hardening, static and dynamic recovery. The overall aim of this work is to develop a model which is capable of describing the basic characteristics of both low and high temperature deformation.